U.S.-Venezuela Cooperative Research: Strain Selection and Cell Isolation of Commercially Important Venezuelan Seaweedsfor Mariculture

This award supports Prof. Donald Kapraun of the University of North Carolina at Wilmington in collaboration with Prof. Andres Lemus of the Universidad de Oriente, Cumana, Venezuela. The researchers intend to engage in a basic research project that will complement an applied research effort in Venezuela to commercially exploit local seaweed resources, initially by harvesting biomass from nature, and subsequently by developing the technology to raise selected seaweeds in a mariculture system. More specifically, the researchers plan to: screen selected isolates for suitability as mariculture seed stock; determine optimal conditions of light intensity, water temperature and salinity for their growth; develop techniques to vegetatively propagate cloned isolates by spheroplast isolation or fragmentation, and to seed substrate for outdoor cultivation; and initiate sexual and somatic hybridization studies to determine the feasibility of creating new genotypes. By combining techniques of genetic engineering of the U.S. side with the information from field studies of the Venezuelan side on the seasonality of growth and reproduction of certain seaweed species, the proposed research has the potential to help develop a seaweed mariculture industry for developing countries.